CSR: Small: Fluid Communication for Parallel Programs

Every aspect of parallel software development is more complicated than for
serial programs. This research focuses on one of the primary sources of
complexity: intra-application communication. Currently it is a programmer's
responsibility to find an efficient mapping of their application's
communication patterns onto the communication infrastructure of the target
system. This research flips that responsibility by developing a flexible
communication architecture and associated tools and algorithms that allow the
target platform to be specialized for a particular application, rather than
vice versa. In addition to reducing the programmer's burden, specialization
has the potential to improve communication efficiency while the automated
techniques can increase portability.

This research poses questions whose answers have consequences at several
levels of the traditional system stack: Can programmers be freed from
hardware-specific optimization of communication without degrading performance?
What abstractions are needed to allow hardware to adapt to the programmer,
rather than the other way around? Can communication efficiency be improved
when running on an application-specific communication platform? The project
answers these questions by exploring abstractions and algorithms to profile a
parallel program's communication, synthesize a custom network design, and
implement it in a configurable network architecture substrate. The research
methods center around the X10 language, and include compiler instrumentation
passes, offline communication profile analyses, development of a portable
network intermediate representation, and network place and route software
algorithms.